Modern Instrumentation for Teaching Undergraduates to Measure Photosynthesis

This project is designed to broaden and strengthen the undergraduate program in Biology, with particular impact on departmental majors whose programs emphasize the subdisciplines of Botany or Ecology. The acquisition of a modern photosynthesis instrument system (portable infra-red gas analyzer which measures photosynthetic gas exchange and instantaneously computes photosynthetic rate, water-use-efficiency, intercellular CO2 concentration, and stomatal conductance) will allow the introduction into the curriculum of modern courses in Plant Physiology and Plant Physiological Ecology. The photosynthesis system will be used by students in the laboratory and in the field to measure and evaluate the interrelationship between plants and the environment. This system is ideal for teaching undergraduate students about plant physiological processes because it allows them to collect and analyze real data, thus creating a favorable climate for learning the scientific methods that are critical to designing and conducting meaningful experiments. The system also will be used for science demonstrations in outreach programs for pre-college students, thus serving the additional goal of interesting uncommitted students. The grantee institution is matching the NSF award with an equal sum obtained from non-Federal sources.